PostDoctoral Research Fellowship

This award is for a postdoctoral fellowship. The investigator will study antarctic subglacial hydraulics and heat transfer at the ice-bedrock interface as an important factor determining the stability of the West Antarctic Ice Sheet (WAIS). An experimental flume will be constructed with the capability of emulating WAIS conditions as much as possible. It will be used to characterize the subglacial latent heat flux, and the results will be integrated into a numerical model of water flow and thermodynamics that the applicant developed as part of the his doctoral dissertation. The model results are expected to help in interpreting the large-scale water balance and possible thermodynamic feedbacks at the base of the ice sheet.